Higher level Reasoning for Constraint Satisfaction

IRI-9504316 Freuder, Eugene University of New Hampshire $78, 415-12 mos Higher Level Reasoning for Constraint Satisfaction Constraint satisfaction is an important reasoning paradigm in artificial intelligence, with many applications, extending to more general computing domains outside of AI. As constraint satisfaction addresses larger and more practical problems, it will become increasingly necessary to bring to bear advanced artificial intelligence techniques for higher level reasoning. Higher level reasoning steps back from the immediate need to find a solution to a problem and reasons about such interests as: Interactive constraint satisfaction (How to acquire, update, and explain constraint knowledge), Abstraction and reformulation (How to simplify problems by removing constraints without trivializing them), Metaknowledge (How to use knowledge about constraint management, substitutability of constraints, and relation of constraints to problem structure effectively), Knowledge compilation (Achieving efficiency by preprocessing bodies of constraints), and Subproblem decomposition (Extraction of useful subproblems and their constraint representations).